Upgrading of the Pacific Northwest Geodetic Array (PANGA): Infrastructure and Data Analysis Facility, Central Washington University

0002066
Miller

This award provides partial funding support for the operation and maintenance of the Pacific Northwest Geodetic Array (PANGA), a network of continuously recording geodetic quality Global Positioning System (GPS) station distributed in the Pacific Northwest. Each station of the network is capable of measuring its position to better than several millimeters and the network is capable of detecting relative motion down to several millimeters per year. Data gathered by the PANGA network will form the basis for interpreting the tectonic framework of the Pacific Northwest, with its active volcanism, subduction of the Juan de Fuca plate under the North American plate, as well as the region's earthquake potential.
***